CISE-CCF-AF-Algebra: SGER: Computational Methods for Systems of Difference Equations

Alexey I. Ovchinnikov proposes to develop efficient algorithms that
determine the differential, difference, and algebraic structure of
solutions of difference equations using methods of differential,
difference, and computer algebra. The investigator has successfully
contributed to the development of computational differential ideal
theory and the Galois theory of linear differential equations. He will
apply these results and methods to give efficient algorithms that compute
properties of systems of difference equations. These properties are
reflected in characteristic sets and Galois groups of the equations.
In particular, the investigator will develop algorithms to reduce systems
of non-linear difference equations to simpler systems. These algorithms
test consistency of the input system and eliminate variables from the
equations of the system. He will also give a Galois theory of linear
difference equations with difference parameters to study difference
algebraic dependences among solutions of difference equations.